Developmental Biology of Phaseolin Gene Expression

Phaseolin, the major seed protein of the common bean (phaseolus vulgaris) is encoded by approximately 7 copies/haploid genome. Genomic and cDNA clones have been sequenced and the developmental regulation of expression of a 3.8 kb beta-phaseolin gene followed in transgenic tobacco. Deletion studies and gel-retardation experiments have been initiated and have identified putative regulatory regions. Dr. Hall here proposes further mapping of the 5' and 3' regions of the beta-phaseolin gene to identify additional sequence motifs that confer tissue-specificity. This investigation will include a study of the role of cis- elements, such as the duplication of the CATT and TATA boxes, towards promoter strength. The development of a protoplast system for rapid assays of transient expression from the various gene constructions will be undertaken. Sequences indicated (by gel retardation, footprinting, and transient expression approaches) as being of regulatory importance, will be tested for functional activity in transgenic plants. Initial Southwestern blot experiments suggest that it is feasible to isolate sufficient quantities of the nuclear proteins interacting with phaseolin gene fragments to permit cloning of the corresponding genes by reverse genetic approaches. Consequently, an additional goal is to clone such sequences, a necessary step towards further understanding the developmental biology of this strongly expressed, temporally regulated and tissue specific gene. %%% Our understanding of molecular mechanisms regulating gene expression in plant systems is very limited. Seed storage proteins have provided a powerful model for the study of gene regulation in higher plants. The study here will help to elucidate the details of one such gene system that is developmentally regulated.